Support for International Institute for Applied Systems Analysis (IIASA)

ABSTRACT Support for International Institute for Applied Systems Analysis This three year grant to the International Institute for Applied Systems Analysis (IIASA), a multilateral research institute located near Vienna, Austria, will provide partial, continuing support for a policy-relevant research program related to environmentally sustainable economic development. Within this context, research will focus on three themes: (1) global environmental change, (2) global economic and technological transitions, and (3) systems methods for the analysis of global issues. Particular emphasis will be placed on the topics of transboundary air pollution, land-use change and land-cover change, links between greenhouse gas emission and other environmental factors, population-environment interactions, the dynamics of technological change, and impediments to growth in the transition economies of Central and Eastern Europe. Research will result in publications in peer-reviewed journals, international conferences and workshops and, where appropriate, will provide a scientific basis for international policy making on the issues associated with global change, economic transitions, and sustainable development. The United States is one of 17 countries that provide support for IIASA through their national member organizations. Other national members include organizations in Japan, Russia, and several other European countries.